RUI: Formation of Complex Precipitation Structures

In this project, funded by the Chemical Structure, Dynamics and Mechanisms Program of the Chemistry Division, the EPSCoR Office, and the Office of International Science and Engineering, Professors Jerzy Maselko and Jim Pantaleone of the University of Alaska at Anchorage will study the self-construction of complex chemical precipitation structures. These structures occur in relatively simple chemical systems such as Cu[II] - oxalate; however, preliminary experiments have revealed very unusual structures on the scale of millimeters to centimeters that are some of the most complex inorganic chemical structures known. The network of chemical and physical processes that controls the trajectory of structure formation will be explored and quantitatively described. This project will deepen our understanding of how complex structures form in biological systems and may also lead to technology for "growing" complex structures on scales of nanometers and above. In addition, Alaskan undergraduate students will reap cultural and academic benefits from research stays at a Polish university.